Cell Fractionation: Applications in the Freshman Biology Laboratory

This project proposes the development of a series of laboratory activities for use in a freshman biology course that focuses on cell and molecular- biology. These activities are improving students' understanding of cellular processes by giving students the opportunity to manipulate biochemical pathways operating in isolated organelles and to quantify the effects of this manipulation. In addition, the activities introduce students to tools and techniques commonly used in research, industrial, and medical laboratories.